Infrared Studies of Molecular Ions, Spectroscopy and Dynamics

The spectroscopy of molecular ions is studied (1) to obtain quantum mechanical information on the fundamental species, in particular on their intramolecular dynamics, (2) to provide astronomers with laboratory spectra for their searches in space, and (3) to study chemistry and physics of laboratory plasmas. Current objectives include: extending spectroscopic measurements on H3+; searching for H3+ in Saturn and Uranus, and for other ionic spectra in Jupiter; carrying out spectroscopy and analysis of carbo-ions (CH5+, CH4+, CH3+ etc); studying proton tunneling in C2 H3+ and CH5; and developing double resonance ion spectroscopy in molecular systems.